Presidential Young Investigator Award: Transport Phenomena Related to Processing of Electronics Materials

The overall purpose of this project is to combine transport phenomena analysis and well-characterized experiments to establish a fundamental framework for understanding problems associated with the processing of electronic and electrochemical materials. The synthesis of electronic materials by chemical vapor deposition of silicon and boron is extended to elucidate more complex processes including autodoping phenomena and the production of new compound semiconductors from organometallic reactants. In a second area of research, a quantitative evaluation is conducted of solid-gas-solid interactions in the manufacture of ferrites and ceramics and in gas phase catalysis. Finally, studies are underway that will be used to improve our understanding of porous electrodes of semiconducting polymers, electrocatalysts, and other new materials for electrochemical applications.